CAREER: Fast Networking for Off-the-Shelf Multi-User Computers

Networks of workstations have been proposed for parallel computation, but slow and unpredictable communication has made performance worse than expected. This project is developing a network interface that reduces the cost of sending messages, to guarantee fast, fair, and predictable performance. The essential idea is to provide a virtual network interface for each user process, with registers for message buffering and with a simplified process to process communication path. The project is investigating several design issues within such an interface, including efficient user-level access to the interface, lazy swapping of interface state, access control, interactions with the operating system kernel, and network fairness. The educational portion of this project updates the computer engineering curriculum. At the undergraduate level this includes course material on processor architecture and pipelining. At the graduate level a course in advanced computer architecture is being developed, to span computer architecture from technological constraints through operating systems requirements. In addition to course work, students will be involved in hands-on digital design.